SHF: Medium: Formally Verified Compilation of Probabilistic Programs

Artificial intelligence is becoming an integral part of society, and is poised to affect increasingly many aspects of life. Like any other software, artificial-intelligence applications can have errors with potentially serious consequences. As a result, improving the quality of artificial-intelligence software is a critical challenge. One promising technology for addressing this challenge is the use of probabilistic programming languages, which let programmers implement artificial-intelligence applications in a simpler and safer way. The focus of this project is to develop techniques and tools to transform probabilistic programs into code executable on a computer. More specifically, the aim is to understand how to make such tools free of errors while being as efficient as possible.

This project develops a verified compiler and runtime for the Stan probabilistic programming language. The compiler is developed in the Coq proof assistant, and connects to CompCert, an existing verified compiler for C programs. Programs written in Stan will be compiled to CompCert C through a succession of transformations, each of which handles a specific feature of Stan. These program transformations are specific to probabilistic programming languages, and include truncating distributions and re-parameterizing to support constraints on random variables. The runtime implements a Markov Chain Monte Carlo algorithm that uses the compiled program to perform inference. The formal proof defines the semantics of the Stan program as a probability measure and shows that the compiled program asymptotically generates samples from this measure.